RUI: Existence and Stability of Coherent Structures with Applications to Elasticity

Applications of elastic rod theory range from modeling the
dynamics of DNA to the coiling of oceanic cables. The commonly
used descriptive equations for elastic rods dynamics are due to
Kirchhoff. However, the Kirchhoff model is complex and only few
classes of explicit solutions are known and analyzed. In a series
of papers, Goriely and coworkers obtained a reduced model
consisting of amplitude equations for the dynamics of a twisted
rod beyond the threshold of its first writhing instability.
Solutions to these equations are known to correspond to fully
three-dimensional deformations of rods. The goals of this project
are twofold. Firstly, the investigator studies existence and
stability properties for a large class of explicit solutions of
the amplitude equations. Secondly, the methods developed to study
the stability of these solutions are extended to partial
differential equations that are completely integrable or have
certain symmetry properties. More precisely, the first task
involves a systematic study of existence and stability of coherent
structures for amplitude equations. Existence is studied by means
of symmetry analysis, while stability is addressed using two
different tools: the Evans function and Hamiltonian techniques.
The second task is a general study of the Evans function. The
investigator examines the relation between the Evans function and
complete integrability and, in particular, is interested in the
connections with a particular notion of integrability, the
Painleve Test. When integrability is not present, it is still
possible for the equations to admit interesting Lie symmetries.
The goal is to show that important information on the Evans
function can be retrieved from these symmetries.

Mechanics is a fascinating field of physics. Its main
purpose is the study of interactions of particles in the presence
of forces such as gravity. In contrast to the dynamics of
particles, the study of continuous media, such as fluids or
elastic bodies, is challenging and not yet entirely well
understood. This is due to the fact that continuous media behave
in numerous and complex ways. For example, it is difficult to
describe mathematically the twisting and bending of elastic rods,
but approximate models do exist. The study of the dynamics of
elastic rods is a field of research that is interesting in itself
as it gives rise to beautiful and complex mathematical structures.
Furthermore, understanding elastic rods is crucial for
applications in several domains of science. In biology, rod
models are used to describe the coiling of different structures
such as DNA. In engineering, elastic rods are used to study the
behavior of submarine cables. In this project, the investigator
focuses on a model that has been proven to be successful in
describing the dynamics of rods: the Kirchhoff equations. These
are differential equations, that is they are equations involving
derivatives. The solutions to these equations represent possible
behaviors for elastic rods. The main purpose of the project is to
study stability properties of elastic rod models. Stability is a
fundamental concept in physics: for example, in theory, it is
possible to make a pencil stand on its lead but, in practice,
because that is such an unstable state, it cannot be done. In the
example just described, the study of stability is very simple and
there is no need for a mathematical analysis to prove or disprove
the stability of the system. The concept of stability carries
over to solutions of differential equations such as the Kirchhoff
equations. In this context, stability takes an abstract form and
its study often involves sophisticated mathematical tools. The
study of stability is of fundamental importance because only
stable solutions can be realized experimentally. Unstable
solutions, just like in the case of the pencil balancing on its
point, although they exist in theory will not be observed. Hence,
with stability studies, one can distinguish the solutions that can
be realized experimentally from the ones that cannot. The
investigator proposes new ways of investigating stability
mathematically. The methods he develops are applied to elastic
rods and other applications.